Performance Assessment Links in Science (PALS): An On-Line Library

Quellmalz 9730651 This project builds on the notion that states, districts, and teachers need innovative approaches to sharing exemplary assessment resources, collaborating on the development of new ones, and understanding how the use of standards-based performance assessments can advance education reform at all levels of the system. This project, a collaboration between SRI and the Council of Chief State School Officers (CCSSO) will develop a type of electronic library--an on-line, standards-based interactive resource bank of science performance assessments. Specifically, the project has two goals: 1. To develop a two-tiered on-line performance assessment resource library for K-12 science from multiple sources. One tier will be a password-protected, secure accountability pool of assessments and the second will be for use by teachers and professional development organizations. 2. To identify, study, and evaluate the effectiveness of policies, implementation models, and technical quality requirements for the use of the two tiers of PALS.